Multidisciplinary Use of High Performance Liquid Chromatography

The introduction of high performance liquid chromatography (HPLC) into biology and chemistry laboratory courses (with a limited introduction into psychology) is being accomplished through the modular upgrading and computerization of an existing high performance liquid chromatograph at Earlham College. The recent acquisitions of an isocratic pump plus a gradient solvent delivery system, two detectors (variable wavelength UV and refractive index), a recorder and a microcomputer-based data acquisition system and several columns for general purpose and specialty use allows assembly, with the existing HPLC, of three complete systems in a variety of configurations for different applications. Students from the Departments of Chemistry, Biology and Psychology are being exposed to significantly improved laboratory experiences in an interdisciplinary mode. Seven courses are affected, as well as student research in all three departments.